Collaborative Research: PP2PP, a Comprehensive Elastic proton-proton Scattering Experiment at RHIC

The award covers graduate student and undergraduate student research
with the PP2PP experiment at the Relativistic Heavy Ion Collider at
the Brookhaven National Laboratory. The goal of the international
PP2PP collaboration is the comprehensive measurement of
proton-proton elastic scattering, eventually covering a wide, and
unexplored, domain in energy (from 50 to 500 GeV) and momentum
transfer (from 0.006 GeV^2 to 1.3 GeV^2) within a single experiment.
The first data run with polarized proton beams will take place in
the Fall 2001. Two Roman pot detector stations will be used, one in
each arm. Two more stations plus central tracking will be added in
following years. With the experiment and by comparing with existing
antiproton-proton elastic scattering data, the helicity structure of
the long-distance pp interaction will be investigated, the exchange
mechanisms will be studied and connected to QCD calculations of
multi-gluon exchanges. The intriguing dip structure in pp elastic
scattering will be accessible with high statistics. At very small
momentum transfers PP2PP will measure absolute cross sections and
the details of the forward scattering amplitude. Beyond 2003, a
special tune of the RHIC machine will allow the lowest accessible
momentum transfer to reach into the Coulomb regime. The small scale
of the PP2PP experiment makes it ideally suited for participation by
undergraduate students in all aspects of construction, data taking,
and data analysis.